NSF/DOE Thermoelectrics Partnership, Collaborative Proposal: Project SEEBECK - Saving Energy Effectively By Engaging in Collaborative research and sharing Knowledge

1048622 / 1048621 / 1048728
Heremans / Lu / Kanatzidis

This project involves researchers from Ohio State University, Northwestern University, and Virginia Polytechnic Institute and State University, with input from industries. Working together, the researchers hope to solve major scientific barriers to commercializing thermoelectric waste heat recovery technology. The goal of project is the creation of a viable system to convert automotive waste heat into usable electrical power using thermoelectric (TE) devices.

Intellectual Merit: The research proposed here will advance work in TE by focusing on five key elements. Materials research (led by OSU and NU) will develop advanced TE materials made from earth-abundant, geographically dispersed elements and compounds, specifically PbSe and Mg2Si-Mg2Sn. Thermal management system design (led by BSST) will create new thermal designs to minimize losses by minimizing the number of interfaces, minimizing the amount of TE material used; these designs will maximize the durability of the product. Work on interfaces, led by VPI&SU and ZTPlus, will focus on the metallization of the TE materials and device interconnection and the flexible bonding of the metallized elements to the heat spreaders to increase durability and reduce device level performance losses. The team will expand capabilities in metrology to measure electrical and thermal contact resistances, and develop a comprehensive and redundant measurement loop system with self-consistent error checking. Durability will be the inherent design criterion in every invention.

This project has the potential to transform progress in TE materials. We will improve the fundamental understanding of the effect of resonant levels on the transport properties of solids, and make it applicable to large classes of semiconductors. The development of matrix encapsulation techniques for Mg2X will expand the repertoire of creative solid-state chemistry approaches in creating nanostructured thermoelectrics. New strong and flexible high-temperature bonding techniques will impact the assembly of semiconductor die. The project will advance understanding on the efficiency of TE generators, TE material durability at high temperatures, and cycle life durability of TE materials, all of which are critical to successful commercialization.

Broader Impacts: This project will create potentially transformative research that promises to save up to 800,000 barrels of oil daily and reduce carbon emissions. Results of the research will be incorporated into classes taught by project investigators in the physics of transport phenomena, materials synthesis and electronic component assembly. The academic PI's will also integrate this research into participation in multidisciplinary collaborative groups. The significance of energy efficiency and usage that this research addresses will be integrated into the well established outreach programs at all three universities. Involvement of corporate partners ensures large scale commercialization, as BSST is the world leader in commercial applications of TE's in automotive and other key industries.